Automatic Crack Detection and Classification in Complex Structures

9361410 Dawes During the last few years, Martingale Research Corporation has been actively developing a neural network architecture called the Parametric Avalanche Scholastic Filter. This network architecture was developed to solve difficult problems dealing with nonlinear dynamical systems. MRC is currently applying this network architecture to automatic recognition of speech. Additionally, Embry-Riddle Aeronautical University is actively conducting research in the field of acoustic emission in various structures, particularly as applied to fatigue monitoring. MRC and Embry-Riddle propose to apply the Parametric Avalanche to the problem of unambiguous detection and classification of acoustic emissions resulting from crack growth in metal structures subject to fatigue cycling. We will apply the Parametric Avalanche neural network technology developed for speech recognition to noisy acoustic emission data with the specific goal of demonstrating a proof-of-concept that can be further developed into a prototype real-time fatigue crack and classification system. ***